Does a Cardiac Hormone Play a Role in Fish Osmoregulation and Euryhalinity

For 25 years, indirect evidence has been accumulating that animals produce a hormone that can reduce blood presure by prompting the dilation of blood vessels and the excretion of salt and water by the kidneys. In the past 7 years it has become apparent that the heart itself can secrete such a hormone, and it has now been determined that the hormone is a peptide containing 28 amino acids. The hormone, atriopeptin, affects vascular resistance and kidney excretion both directly and indirectly, via inhibition of other hormones. Fish face chronic salt and water loads because their body fluids are more or less concentrated than sea water or fresh water repectively. The organs involved in maintaining a relatively constant salt and water content of the blood include the kidney, the gills, the gut, and the urinay bladder. Our hypothesis is that the ability of fish to maintain this homeostasis (osmoregulation) when presented with varying environmental salinities (euryhalinity) is dependent upon an atriopeptin from the heart. It is the intent of our study to extract and purify this putative fish atriopeptin, determine if immunoreactive atriopeptin is in the blood, heart and brain of various species, and if its amount changes with alteration of environmental salinity. Our reseasrch will give some insight into the evolution of structure and the function of this important vasoactive peptide.